Cosmic Horizons: Our Place in Space and Time

9909705
GOULD

The Smithsonian Astrophysical Observatory will develop "Cosmic Horizons: Our Place in Space and Time." This will be a 5,000-square-foot traveling exhibition to help visitors explore the extraordinary recent breakthroughs and current mysteries in our scientific understanding of the structure and evolution of the universe. Cosmic Horizons will reach over 3 million people on its tour of nine to twelve science museums. A coordinated set of programmatic activities and resources for adult and family audiences, materials for teachers and students, and on-site workshops for host venues will be developed in partnership with Boston's Museum of Science to maximize the impact of this space-science education endeavor.